Study of Hadronic Structure Using Electromagnetic Probes

The research being done by Professors Daniel Carman and Kenneth Hicks
of the Department of Physics and Astronomy at Ohio University is conducted
in the area of intersection between nuclear and particle physics. One goal
is to study the production of subatomic particles having at least one
"strange" quark in their makeup. The strange quark is heavier than the
conventional "up" or "down" quarks that make up common particles found in
the nucleus, like the proton and the neutron. Interestingly, studies
involving particles with "strangeness" represent a new way to investigate
the dynamics and structure of matter composed of non-strange quarks. This
is accomplished by understanding how particles without strangeness decay into
particles containing these strange quarks. These experimental studies provide
more information and constraints for the underlying theory of the quark structure
of particles and their excited states known as quantum chromodynamics (QCD).
One possible extension to the known set of subatomic particles would be the
discovery of "exotic" particles which are allowed by the rules of QCD, but not
yet seen experimentally. In particular, the glue which binds quarks can itself
carry a portion of the spin quantum numbers of a particle, and these particles
are predicted to exist. Understanding the nature of this glue is one of the most
important unanswered question in the field of nuclear physics. Experiments at
the Thomas Jefferson National Accelerator Facility (Jefferson Lab) in Newport
News, VA, where Carman and Hicks do their research, are searching for signs of
exotic particles, which (if found) will extend our knowledge of the strong
force that binds quarks together into subatomic particles and into the very
structure of the matter around us.